SHF: Small: Programming with Semantic Revision Requests

Software development today is a social process, and the workflow of
programmers is increasingly centered around discussing program
revisions - that is, artifacts that document small, incremental program
changes. Meanwhile, traditional research on testing, debugging, and analyzing
programs focuses on one program version at a time, ignoring any preceding or
succeeding versions of the same software artifact. The project's novelties
are a foundational examination of program revisions and the investigation of
automated techniques that cooperatively assist software-engineering teams
with reasoning about them. The project's impacts are to enhance the way
engineering teams collaboratively evolve their software and thus enable them
to more effectively create secure and reliable software on which society
depends.

The project's core contribution is defining the notion of a "semantic
revision request" that enables treating program revisions as first-class
entities for debugging and analysis tools. A semantic view of program
revisions enables programmers to run or analyze the program revision (both
before and after a change simultaneously), not merely each of the two program
versions, as supported by today's conventional tools. By focusing on
debugging and analyzing program revisions - not their individual program
versions - the resulting tools come closer to capturing the intent of the
programmer as they develop and commit program changes. The intended broader
impact from a technical perspective is that these executable and analyzable
specifications will supplement, or even replace, informal descriptions about
how software systems evolve, by providing an unambiguous way to communicate
high-level programmer intent.